Hydromechanical Constraints on the Ontogeny and Evolution ofScaphitid Ammonites

We plan to investigate the hydromechanical properties of closely related group of scaphitid ammonite species in the context of their phylogenetic framework and their distribution with respect to time, lithofacies, and geography. We have chosen an endemic, monophyletic group of approximately 25 species ranging from the Turonian to Santonian (Upper Cretaceous) of the Western Interior of North America. These species preserve in their shells a record of their growth and manifest profound morphological changes during ontogeny, eventually developing an uncoiled body chamber at maturity. In addition, these species display a wide diversity in adult shell shape ranging from relatively compressed species with a well-developed "scaphitid" body chamber to relatively depressed species in which the body chamber is "normally" coiled. Using a flow tank and drag measuring apparatus, we will study the hydromechanical implications of ontogenetic changes in size and shape for each species. This will allow us to construct species specific hydromechanical ontogenetic trajectories (HOT's) covering all of postembryonic growth. We will supplement this information with studies of the siphuncle and septa, which may provide information on relative habitat depth. We will compare these HOT's with the paleoenvironmental and evolutionary distribution of the respective species within the well documented context of the Western Interior Seaway. Thus, this comparison will elucidate for the first time the extent and way in which functional hydromechanical constraints have contributed to the evolution and geographic distribution of a closely related group of ammonites.